CC* Networking Infrastructure: Network for Data Driven Science in Allied 21st Century Smart Multi-Campus System: A Use Case Design Through Kent State's Sharable Science DMZ

This project from Kent State University (KSU) designs a ScienceDMZ sharable by the ten KSU campuses spread across northeastern Ohio aligned with NSF's goal of to innovate more scalable approaches to expand advance cyber infrastructure for massive data drive science. A ScienceDMZ at KSU's main campus connects to OARnet's optical exchange to have 100 Gbps unimpeded transfer rate capacity. KSU and OARNet teams to build a virtual DMZ perimeter over a highly-responsive regional WAN allowing researchers from bandwidth constrained regional campuses to access the cyber-facility with uniform access. IPv6, and shared network innovations like PerfSONAR and InCommons are employed.

The ScienceDMZ leverages a broad set of compelling big-data projects. The project launches outdoor ultra-high speed wireless access infrastructure in campuses connected to the ScienceDMZ to facilitate big-data-driven dense sensor and IoT research projects. This project is unique in the sense that a shared regional science DMZ is leveraged across ten campuses throughout north-eastern Ohio. The region of the Kent's allied campuses is the Rust Belt of America. The project brings the world of data-driven STEM research closer to this mass of students, a large percentage of whom are Pell-eligible and/or first-generation college students.